Space-Time Vector Quantizing of Color Imagery

Digital transmission of images implemented by VLSI is considered a very important area because of the possible reduction in the transmitted information rate subject to an acceptable level of error. Much of the research to the present time has been devoted to still-picture, or intraframe coding. Other work has been directed towards the interframe coding, or motion coding, task. In this investigation, both intraframe (still) image coding and intraframe (motion) image coding, with an objective of further bit rate reduction below presently known techniques, is pursued. This research involves vector quantization principles which are to be extended to color imagery and to temporal coding. The goal is to make the objective bit rate substantially lower than present levels. The first topic involves extending recent work in intraframe coding to color imagery and to lower bit rates. Coding of motion imagery by vector quantizing of the frame difference signals is also proposed, along with a simple classification scheme to process color imagery at rates of approximately one-third of the rate that now exists for standard videoconferencing coders.